A New Probe for Galaxy Clustering: The Minimal Spanning Tree

This work, funded by a Small Grant for Exploratory Research, explores a new statistical tool called the Minimal Spanning Tree (MST). This algorithm is capable of identifying filamentary structures as well as sheet-like structures and cell walls in astronomical positional data. It will be used as a tool to quantify galaxy distributions in sky catalogs and red-shift surveys, as well as models and simulations of the clustering process. The Principle Investigator has pioneered in the application of this technique to astronomical distributions. If successful, this research will open new avenues toward identifying, quantifying, and constraining the physics of galaxy clustering.